Non-commutative Algebraic Geometry

The principal investigator and his colleagues study non-commutative
algebraic goemetry with particular emphasis on projective
surfaces. General abstract methods are developed and are applied to
specific important classes such as quantum ruled surfaces, and blowups of
non-commutative analogues of the projective plane. The positive cone of
curves on these surfaces is studied, with the goal of better
understanding the intersection theory and using the Picard group as an
invariant. The possibility of using cyclic homology as a new invariant is
also under examination.

Non-commutative algebraic geometry extends the fruitful
interaction of algebra and geometry that lies at the root of modern
algebraic geometry. The modern origin dates from Descarte's introduction
of coordinate axes, but until recently the geometric perspective on
algebra has been restricted to commutative algebra. However, modern
physics shows that nature behaves non-commutatively at the quantum level
(Heisenberg's uncertainty priciple says that the measurement
of momentum and position do not commute -that is, the order in which one
measures them affects the values obtained). Other fundamental mathematical
tools that appear in physics,like Lie groups and differential operators,
are also non-commutative. Thus, development of non-commutative geometry is
part of understanding the geometry underlying the mathematical structures
of modern physics.